Student Travel Support for the Twelfth Symposium on Networked Systems Design and Implementation (NSDI 2015)

This project funds travel support for students to attend the Twelfth Symposium on Networked Systems Design and Implementation (NSDI 2015) that will be held in Oakland, CA, on May 4-6, 2015. The conference focuses on the design principles of large-scale networks and distributed systems and, in particular, challenges that are shared across systems as diverse as internet routing, peer-to-peer file sharing, sensor nets, scalable web services, and distributed network measurement. The goal of the conference is to bring together researchers from across the networking and systems community -- including computer networking, distributed systems, and operating systems -- to foster cross-disciplinary approaches and to address shared research challenges. This cross-disciplinary emphasis makes it well-suited as a target for student participation. The travel support permits a more qualified and diverse group of student attendees than would otherwise have been possible. Students attending the conference benefit from both the technical content of the conference and the professional interaction with senior researchers from other universities and with industry.

Participation in NSDI 2015 is a valuable and important part of the graduate school experience. It provides students with the opportunity to interact with more senior researchers in the field, and exposes students to leading edge work in the field. This project will enable the participation of students who would otherwise be unable to attend NSDI. NSDI 2015 will offer many opportunities for students to meet, interact, and exchange ideas in an informal atmosphere including members of the program committee, speakers and organizers who are on site and a poster session.